Minority Graduate Research Honorable Mention: Katya Prince

This special award will give Ph.D. student Katya Prince flexibility in pursuing her graduate studies and research initiation in Functional Morphology and Behavioral Ecology. This award will strengthen minority research participation in this area.